CAREER: Large Cardinals

The PI is investigating several aspects of large cardinal theory in the
region of Woodin cardinals, including (1) Long Games; (2) Iterability; and
(3) connections with Descriptive Set Theory. 1 - Results obtained by the
PI through previous NSF support demonstrate the tight connection between
Woodin cardinals and games of variable countable length. The existence of
iterable models for specific large cardinals can be used to yield the
determinacy of games of specific lengths, with increasing length
corresponding to increasing large cardinal strength. These games in turn
can be used to decide statements over minimal inner models for large
cardinals. The PI is attempting to extend this correspondence, the first
main test case being open games of length omega one. 2 - The study of
Woodin cardinals leads naturally to a transfinite game known as the
iteration game. Winning strategies ("iteration strategies") for the good
player in this game are essential to the comparison process that lies at
the heart of inner model theory. Proving that iteration strategies exist
is the single most important problem in the field. The PI has been working
on this problem, contributing to the existing pool of partial results.
Several problems, related to the general problem of iterability but
specialized and more concrete, are investigated as part of this project.
This investigation should provide increased understanding of the main
problem, and hopefully lead to additional partial results. 3 - The PI is
working to solidify the connections between large cardinals and definable
sets of real numbers. Extensive work, much of it done during the '70s and
'80s, provides a detailed analysis of definable sets of reals assuming
determinacy. Later work obtained determinacy from large cardinals. The PI
is working to emulate the existing analysis of definable sets of reals,
working directly from large cardinals. The point here is to try to convert
methods used in the study of definable sets of reals, into methods which
can be used in inner model theory and the study of large cardinals.

Set Theory is a branch of Mathematics which attempts to understand the
universe of Mathematics, that is the collection of all objects studied by
Mathematicians, or more precisely the collection of all _sets_. (Numbers,
groups, functions, etc., can all be represented as sets.) Set Theorists
view this universe as a structure in its own right, a structure which can
itself be analyzed using mathematical reasoning. For example, a Set
Theorist may ask "is there an embedding of the universe into a similar,
yet not identical, structure?" Set Theorists work with such embeddings
("elementary embeddings") in much the same way that one would work with
functions on numbers, asking "how similar is the target structure to the
original structure?" and "what's the smallest size of a set actually moved
by the embedding?" Such questions about embeddings of the universe form a
subfield of Set Theory known as the study of large cardinals. The
terminology here hints at the answer to the last question mentioned.
Indeed, the sets actually moved by elementary embeddings are substantially
larger than any object studied in other branches of Mathematics
(substantially larger than the set of real numbers for example). Yet it
turns out that the existence of elementary embeddings has concrete effects
on lower level objects, including concrete effects on real numbers. This
project is part of the on-going effort to better understand large
cardinals, and better understand their effects on the line of real
numbers. The PI, like other researchers in the field, is motivated by the
connection between the abstract and the concrete.